Instability of Fluid Flows

Shvydkoy
0604050

Instability of fluid motion is the main subject of this
proposal. Although it was a classical and rather experimental
branch of the hydrodynamics in the early days, it now stands as
an actively developing area of modern analytical fluid dynamics,
and it provides many challenging problems to mathematicians. The
motion of an ideal incompressible fluid is governed by the Euler
equation. Because of the particular structure of the nonlinearity
present in the equation it appears to be notoriously difficult to
answer even the most basic questions in a rigorous mathematical
way. One of these questions is to justify the Lyapunov
linearization method for stationary fluid flows. In particular,
if the Euler equation linearized about a given equilibrium has
unstable spectrum, does this imply that the equilibrium is
unstable in the nonlinear sense, say, in the basic energy norm?
The investigator studies this and other questions related to
instability and spectra. These include: the question of finding
unstable shortwave perturbations for general fluid flows;
analysis of the spectrum for the Euler equations and the
relationship with the spectrum of weakly viscous flows in the
limit of vanishing viscosity. The investigator examines these
problems using modern WKB-type asymptotic analysis for the Euler
equations, pseudo-differential calculus, as well as newly
developed connections between the cocycle theory and fluid
dynamics.

The questions addressed in this particular project are
closely related to the fundamental problems of environmental
science such as weather prediction, climate change, and oceanic
motion. Instability of large fluid masses is inherent in the
nature of those processes, while large scale instabilities often
grow out of small scales. The investigator presents mechanisms
for such small scale instabilities and gives them a precise
mathematical description. Understanding instabilities in fluid
flows is important for a broad range of questions in atmospheric
science and geophysics.